Nonlinear Processes in High Latitudes

Analytical and numerical investigations of geophysical fluid dynamics emphasizing strongly non-linear processes in high latitudes will be done. The motivation is previous observations in the Greenland Sea.